Workshop on Control to be held March 17-19, 1989 at MIT

ABSTRACT The subject of this conference is the distribution and control of phonologically empty subjects. Examples of empty subjects are the (logical) subjects of the infinitive clauses in such sentences as " Felix persuaded Max to eat turnips", or "Eunice promised John to hurry home". Although the topic of empty subjects has been studied for several years, non consensus has been reached, even internally to any of the disparate theoretical frameworks in which the problem has been addressed. The objectives of this workshop are: 1) to assess the present understanding of control related phenomena from the perspectives of semantics (model theoretic and truth theoretic), syntax (categorial grammar, government and binding theory, and lexical functional grammar), historical linguistics, and language acquisition; 2) to compare and synthesize these various approaches to control; and 3) to encourage further cooperation among researchers working within these different theoretical frameworks. The workshop will bring together leading scholars who have done substantial work on control phenomena from diverse perspectives.